Environmental Weakening of Geologic Materials

This award will support acquisition of hardware in convection with experiments to investigate the effect of aqueous and non- aqueous chemical environments on low crack growth in monomineralic polycrystalline aggregates. Two series of experiments will be performed using orthoquartzite and aplite. Both series will also include a limited set of parallel experiments on single crystal samples of quartz and feldspar. The experimental design involves double cantilever beam loading geometry, which permits controlled crack growth. These experiments will provide a means to unambiguously combine the extensive database on environmental effects on crack propagation in single crystals with the observed effects in polycrystalline samples of the same materials. The role of the process zone, the effects of chemical environments on intergranular cracking, and the roles of kinetics and steric hindrance will be assessed in experiments.